Purchase of an API-HPLC Mass Spectrometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the Department of Chemistry at University of California at Irvine to acquire a atmospheric pressure ionization (API) quadrupole mass spectrometer. This equipment will enhance research in a number of areas including the following: (1)synthesis and integration of non-natural amino acids into peptides and proteins for fundamental structure/function studies, (2) polyguanidinium/polyamine containing alkaloids, (3) structural determinations on macrolide antibiotics, (4) oligonucleotides and synthetic ionomers, and (5) dearomatization reactions of amino aids, peptides and in indolocarbazole glycoside synthesis. Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules. The addition of the technique of electrospray extends the range of MS to proteins and nucleic acid molecular weights far beyond any other technique. The use of electrospray ionization in combination with high resolution provides the latest techniques available in mass spectrometry. It affords the chemist one of the most powerful tools available for the characterization of compounds. The acquisition of this capability in mass spectrometry is essential for the prosecution of frontier research in many fields of chemistry.